CAREER: Interpolation, stability, and rationality

This project develops techniques to understand the geometry of the solutions to systems of polynomial equations. Of particular interest is when the set of solutions are one-dimensional, in which case it is called an algebraic curve. Since polynomials are ubiquitous in science and engineering, such solution sets arise in many different contexts. One important example is the interpolation problem: given a collection of general points, when is there a fixed type of algebraic curve passing through these points? This problem has applications to cryptography and information theory. The research projects will shed light on the possible realizations of an algebraic curve by polynomial equations, as well as new and important cases of the interpolation problem. This will be complemented by educational and outreach activities, including a sequence of workshops designed for early-to-mid career women and nonbinary graduate students in algebraic geometry and mentoring undergraduate research.

More specifically, the research projects are in the following three directions. The first focuses on the natural stratification of the space of vector bundles on a curve equipped with a fixed dominant map to another curve by the stability of the pushforward. The second focuses on the interpolation problem in other settings, including when the ambient variety is a homogeneous space. The last focuses on the rationality problem for varieties over nonclosed ground fields, and in particular upon generalizations of the intermediate Jacobian torsor obstruction.